ITR/SI: A Flexible Framework for Secure Information Sharing Among Collaborating Organizations

Proposal No: 0113515
ITR/SY: A Flexible Framework for Secure Information Sharing Among Collaborating Organizations
PI: Jajodia Sushil

This proposal seeks to develop a exible framework for secure information
sharing among collaborating organizations. The approach will be to extend the Flexible
Authorization Framework (FAF) designed by the PI and his colleagues. FAF is based on an
authorization specication language that has rule based syntax and sound, non-monotonic logic based
semantics. The rst goal of this proposal is to enhance FAF to include information ow
controls, provisional authorizations, delegation of authority, and a rather broad sense of
revocation capabilities of granted permissions. The second undertaking is to investigate ecient
implementation of the resulting framework that is based on the best practices of the security
community. The third goal of this proposal is to investigate the properties of basic constructs
that are used to compose security policies.
The main deliverables of this proposal are a reference architecture,
mathematics and algorithms for security specications of information access and ow, their ecient
implementation techniques, and an an algebra for policy compositions.